Sustainable Wafer-Scale Manufacturing of Ultra-Thin Semiconductor Materials Enabled by Molten Interfaces

This project advances a new approach to manufacturing ultra-thin semiconductor materials that are essential for next-generation electronics. Technologies such as sensing, communication, and energy systems increasingly rely on materials with precisely controlled thickness at the nanometer scale, yet existing manufacturing methods often require high temperatures, expensive infrastructure, and complex processing steps that limit scalability and sustainability. This work addresses these challenges by developing a low-temperature, energy-efficient manufacturing strategy enabled by molten interfaces, which can produce highly uniform semiconductor layers over large areas with exceptional thickness control. By enabling sustainable, wafer-scale production of high-performance materials, the project supports the development of advanced electronic systems while reducing environmental impact and manufacturing costs. The outcomes will contribute to national priorities in strengthening domestic semiconductor manufacturing, advancing energy-efficient technologies, and expanding the capabilities of large-area and flexible electronic systems. In addition, the project will support education and workforce development by training students in advanced manufacturing and materials engineering.

The project will establish the scientific foundations for a scalable manufacturing process that enables precise formation of ultra-thin semiconductor layers using reactive liquid metal interfaces. The approach leverages controlled oxidation and chalcogenization reactions at a dynamic liquid metal meniscus to synthesize continuous films with thicknesses in the one to few nanometer range. A central objective is to understand how meniscus shape, motion, and stability govern film formation, including the roles of contact line dynamics, surface tension, and gravitational effects in determining large-area uniformity. The research will further investigate the kinetics of nanoscale film growth based on Cabrera-Mott oxidation, including the evolution of thickness, composition, and stress, and how these processes couple to interfacial transport during printing. In addition, the project will explore the formation of multilayer structures and chemical transformations to produce a range of semiconductor oxides and sulfides with controlled properties. By establishing quantitative relationships between processing conditions, film morphology, and resulting electronic and optical behavior, the work will enable predictive control of material quality. The outcomes will provide a framework for high-throughput, low-temperature manufacturing of ultra-thin semiconductor materials with angstrom-level thickness control and wafer-scale uniformity.